Northern Caddoan Dictionaries Project

ABSTRACT The "Northern Caddoan Dictionaries Project" will compile reference dictionaries of two closely related American Indian languages of the Caddoan family, Arikara and Pawnee, which are spoken today by only a dozen elderly tribal members in North Dakota and Oklahoma. The dictionaries, each to contain approximately 8,000 entries, will draw upon all available lexical and textual materials: data collected by the PI over the past twenty-five years; data collected by anthropologists earlier in the century; and data in historical sources. Three months of additional field work will fill in lacunae in the data base. Although there is no dialectal diversity within Arikara today, there are two dialects of Pawnee still spoken--South Band and Skiri-- and the Pawnee dictionary will account for the differences between these two forms of speech. The project, part of a larger effort to document Pawnee and Arikara as fully as possible, will result in the first reference dictionaries ever compiled for them. The dictionaries, moreover, will provide essential data for the comparative study of the Caddoan language family and the interrelationships of the Caddoan languages with other genetically related languages families in the New World. They will also serve as reference tools for scholars and in language classes in the Arikara and Pawnee communities.